Collaborative Research: Intracontinental Deformation and Surface Uplift: Geodynamic Evolution of the Hangay Dome, Mongolia, Central Asia

Large relatively high-elevation surfaces with low relief are common on
the continents. Such uplifts have a significant impact on the geological
record by influencing drainage networks and sediment supply, on climate by modifying
atmospheric circulation, and on biogeography and the biota. Work in geodynamics has
shown that such uplifts amount to a telling signature of mantle dynamics. Thus, they
provide a means to discriminate among hypotheses about how the continental lithosphere
and the deeper mantle interact through processes that result in uplift and mass transfer in
continental interiors. The Hangay Dome in central Mongolia provides an excellent and
accessible laboratory to investigate these processes and determine the degree to which
mantle upwelling, mafic underplating, lithospheric foundering or plume activity have
been important agents in its uplift. This five-year project proposes to use the Hangay
Dome as such a laboratory to coordinate studies of both the structure and state of the
lithosphere and the sublithospheric mantle as well as the history of surface uplift and
landscape evolution. The project will involve observations and measurements made using
broadband seismology, basalt and xenolith petrology and geochemistry, 40Ar/39Ar
geochronology, stable-isotope and vesicular-basalt paleoaltimetry, geomorphology and
10Be geochronology, molecular genetics of divergent fish populations, and U-Th/He and
4He/3He thermochronology. The Hangay Dome’s widespread exposures of basaltic lavas,
which were erupted over the past 30 Ma across a broad range of elevations, will be key to
the integration of all these data. Dating of the basalts will enable linkage of petrologic data
bearing on basalt genesis and the nature of the Hangay-Dome mantle with studies that
use the lavas as time markers for documenting landscape evolution and the history of
surface uplift.